U.S.-China Cooperative Research: Nonlinear Optical Properties of Heavy Metal Borate and Silicate-Based Glasses

9724716 Affatigato and Feller This award supports extension of research funded under DMR 9623681 to include cooperation with the Physics Department of Fudan University, Shanghai, on formulation and characterization of interesting and potentially technologically significant glasses. In the current proposal, the two PI s, one senior and one a recent Ph.D. will be joined by several undergraduates in a joint project that will combine the glassmaking and property characterization capabilities of the Coe College group with the expertise in nonlinear optics resident in Dr. Wang Wencheng's group in the Laser Physics and Optics Lab at Fudan University, Shanghai. The main scientific goal is to investigate the second-order nonlinear optical properties of poled bismuth and lead borate and silicate glasses. Most of the manufacturing and measurement work at Coe will be carried out by undergraduate students. Sharing of facilities and expertise is at the core of the proposal. The glassmaking equipment and knowledge necessary for the project is unavailable at Fudan University, while the Coe College group has a long tradition of manufacturing novel glasses at extreme compositional limits. On the other hand, the group at Fudan is internationally recognized for their expertise in nonlinear optics, which is lacking at Coe. Support on the Chinese side will be provided by the National Natural Science Foundation of China.